3-D Computer Graphics and Analysis of Microscopic Images of Biological Structures

An advanced interactive serial reconstruction system will be developed, and programs will be implemented for the derivation and visualization of data from thick section electron microscopy tilt series. This award will provide an initial basis for these efforts. The facilities of the San Diego Supercomputer Center will be utilized to implement and explore computer graphic methods for the three dimensional reconstruction and visualization of data represented as a series of planes or cross sections through a three dimensional medium. The computer software tools will be available not only for biologists but also for meteorologists, oceanographers and geologists who wish to explore three dimensional distributional aspects of data collected in the form of layers or strata. The programs are being implemented on an Ardent Titan and a Silicon Graphics IRIS workstation. The electron microscopic images are being analyzed to obtain substantial three dimensional information about the structure of biological specimens. The methods employ tomographic reconstruction of two dimensional images and exploit prior developments for registration of digitized tilt series and three dimensional energy distribution. The computer advances will be applied to three dimensional reconstruction of cellular images from both electron and light microscopy, to images of molecular and macromolecular assemblies, and to neuroanatomical mapping systems.